Quantitative Modeling of Cutaneous Type I Receptors

This project is concerned with the understanding of the function and structure of a particular cutaneous mechanoreceptor. A model of how mechanical pressure on the skin is sensed with respect to spatial and temporal stimuli will be developed. This will be achieved by applying information theoretic methods to study stimulus feature extraction. The results of this work should be relevant to sensory disabled people, e.g., blind or hearing impaired, who could achieve necessary sensory information using skin receptors as an alternate sensory channel. Other research groups are active in the area of tactile displays so the information from this project could be important to the accomplishment of better sensory substitution.